Evolutionary Dynamics of Chloroplast DNA

Evolutionary biology involves two major processes: the origin of genetic variants in a population, and the genetic differentiation of populations and species. Understanding both of these processes is critical to managing the earth's natural resources for sustained agriculture, as well as for answering basic questions concerning life itself. Since these two processes apply to all genetic traits- including the three plant genomes (nuclear, mitochondrial and chloroplast)- this framework serves to focus the research proposed here. In particular, this research concerns the origin of genetic diversity in the chloroplast genome of higher plants. Previous studies of chloroplast DNA evolution have often compared distantly rated groups of plants and observed structural rearrangement of the genome. From these data, mechanisms have been inferred to explain the origin of novel genotypes; however, no direct studies of those mechanisms have been attempted. As a result, much about the origin of genetic diversity in the chloroplast genome of higher plants is unknown. The proposed research aims to study two possible mechanisms involved in the origin of new chloroplast genotypes. Using a unique set of dispersed repeated elements located in the chloroplast genome of some clovers, plants in the genus Trifolium, Dr. Milligan will examine both mechanisms. By studying the genomic structure in several closely related species with differing numbers of repeats, he will be able to identify whether or not rearrangements are associated with the repeats. By sequencing different copies of the repeats he will be able to detect whether nonreciprocal recombination has occurred. This more direct study of the origin of genetic diversity in the chloroplast genome of higher plants will greatly increase our understanding of the mechanisms involved. not only will this provide information important to our basic understanding of evolution, but it may also provide a basis for modifying the genome in the future. since the plant chloroplast is responsible for photosynthesis, modifications of the genome may prove to be an important tool in the future agricultural efforts.